CAREER: Slice-Processing: Highly-Accurate Prediction for Future High-Performance Processors

DATE: April 19, 2000
PROPOSAL NUMBER: C-CR 9984371
INSTITUTION: Northwestern University
PI: Andreas Moshovos
TITLE: CAREER: Slice-Processing: Highly-Accurate Prediction for Future High-Performance Processors
ABSTRACT
Prediction-driven speculative techniques are used in virtually all modern, high-
performance processors. Such techniques offer a promising direction for further
boosting performance. However, the benefits so obtained are only as good as the
underlying prediction-based methods are at guessing what the program needs.
This project investigates slice-prediction, a paradigm that aims at providing
highly accurate prediction beyond what is possible with the existing methods.
Existing methods are primarily outcome-based since they rely on repeating
patterns in a program's outcome stream (e.g., addresses or branch directions).
However, such patterns do not always exist. More importantly, as current
outcome-based methods are perfected, irregular patterns increasingly dominate
performance. Slice-prediction attacks such cases by predicting the computation-
slice that produces such irregular yet performance-critical outcomes. Predicted
slices are then treated as miniature, autonomous programs, which can precompute
performance critical outcomes. The intuition is that while the outcome of a
program can be irregular the method used is typically relatively simple and
fairly stable.
This project focuses on architecturally invisible, hardware implementations of
slice-prediction, and targets the following applications: (1) Branch Prediction
and (2) Data Prefetching. Performance achieved by slice-prediction is evaluated
through a detailed software simulator over a set of widely used benchmarks.